Research Experiences for Undergraduates at the University of Virginia

This is a continuation of a successful program that involves undergraduate students in meaningful and timely research. It will continue to be an important part of the education process in physics in the region.